Pliocene peak sea level and warmth: Integration of a Virginia corehole array and deep-sea isotope and trace metal records

PIs promise to establish the sea level rise associated with warm Pliocene high stands. This is critical to our understanding of the cryosphere during a time that has been suggested by many to be similar in some respects to conditions expected by the end of this century.